Promoting Problem-Solving Skills in Middle School Mathematics

This project responds to increasing national concern about the low levels of participation and achievement of inquiry skills among women and non-Asian minorities in mathematics. Activities will include the design of an instructional approach that combines an inquiry-based mathematics curriculum with cooperative small-group learning. It will test the effects of the combined instructional approach on the mathematics achievement, attitudes, and future plans of low-income Hispanic middle school students. The major focus will be on students' ability to solve problems in mathematics and their participation in classroom problem-solving activities. The project will be carried out in three phases: (1) the effects of inquiry-based instruction on development of inquiry skills will be tested; (2) a cooperative learning component will added to the classroom activities; and (3) students will be trained to increase their involvement and participation in classroom activities. The results of this project will be significant in a number of ways: it is the first attempt to design and systematically test combined inquiry-based and cooperative learning approaches to mathematics curriculum and instruction; it has the potential of creating more optimal learning opportunities for low socioeconomic Hispanic students; it has potential for improving the inquiry skills of all students; and the intervention strategies to be developed have potential for motivating students to continue their education in mathematics and the sciences.